Architecture, Environment & Energy: Synthesis & Assessment

The environmental impact and performance of building materials has not been formally synthesized and presented to architects and designers for their consideration in the design process. This project is a planning activity to identify the materials and their energy/environmental concerns and to categorize them for evaluation and integration.